PostDoctoral Research Fellowship

This award is made as part of the FY 2013 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Brent Werness is "Schramm-Loewner Evolutions and Related Conformally Invariant Objects." The host institution for the fellowship is the University of Washington, and the sponsoring scientist is Dr. Steffen Rohde.